Mathematical Sciences: Presidential Young Investigator Award

This research is concentrated at the interface of probability and analysis, where martingales, harmonic analysis, analytic functions, and Brownian motion overlap. Part of the research involves the study of a class of operators which are called the projections of martingale transforms. Basic properties of these operators ares examined together with their connections to probabilistic products and to singular integrals. This research conducted at the border between analysis and probability, demonstrates an extensive and balanced knowledge of both and results in a cross-fertilization where fundamental tools in one area are applied to the other. The research goes a long ways toward answering Gundy's 1983 conjecture that the law of the iterated logarithm, which holds for martingales, should also hold for harmonic functions. This is a fundamental question which asks for a precise description of how the two basic operators on harmonic functions, the nontangential maximal function and the Lusin area function, control each other.